Forced Convection Effects on Gas Flux in Benthic Cnidarians

Many sessile marine invertebrates depend on forced convection of seawater to deliver particulate food, dissolved nutrients, and respiratory gases. Previous work with passive suspension feeding cnidarians has shown that the state of flow in the boundary layer over the organism is the most important determinant of particle and gas flux. The theory of mass transfer has been under-utilized in the analysis of convection mediated gas flux in aquatic invertebrates. I propose to investigate how flow modulates exchange processes in several species of boreal and temperate cnidarians through experiments using gas microelectrodes, recirculating flow respirometry, cell layer organism analogs, heated model organism analogs, and field morphometry. The goals of this study include: (1) an understanding of the effects of organism size, geometry, and spacing on the Sherwood/Reynolds number relationship, (2) measurement of the frequency of diffusional boundary layer limitation and turbulent enhancement effects in real turbulent flows in shallow subtidal hibitats (3) testing of diffusional similarity models as a scheme for understanding the allometry of polypal geometry in cnidarians, and (4) investigation of microelectrode diffusional boundary layer mapping as a physiological probe of areal exchange coefficients and their relationship with animal structure and the momentum boundary layer. The results of this gas exhanges study will also give insights into uptake of DOM and some aspects of osmoregulation, and will be useful to workers interested in estimating secondary productivity in marine habitats. This work will have application to the study of fouling communities, coral reef ecology, and near-shore benthic processes.